Mesozoic-Cenozoic Ocean Circulation

Dr. Barron will involve two undergraduate students in the research related to his grant. This involvement is under the aegis of the Research Experience For Undergraduates Program. The students will be involved in numerical model code refinement and some simple model experimentation. The students work would not only enhance the research under this grant, but also give them invaluable experience working in collaboration and cooperation with graduate students and programmers.